Collaborative Research: HDR DSC: DS-PATH: Data Science Career Pathways in the Inland Empire

This project brings together six partnering institutions to advance Data Science education in the Inland Empire, one of the most populous and diverse regions in California and the nation. The partnership includes the University of California Riverside, California State University San Bernardino, the three community colleges of the Riverside Community College District, and San Bernardino Valley College. All six partners are Hispanic Serving Institutions. The objective is develop and deploy ‘The Data Science Career Pathways in the Inland Empire’ (DS-PATH), a DSC program that aims to: (i) create flexible pathways for Data Science education in the Inland Empire region of Southern California, (ii) provide students with experiential learning opportunities, (iii) develop a community of partners that will provide local, tangible, and impactful Data Science projects, and (iv) broaden participation of females and under-represented minorities in Data Science.

The team of diverse PIs and co-PIs puts forward a program centered around more flexible educational pathways, along with course alignments, articulations, and shared experiential learning opportunities. DS-PATH will create a pipeline that starts with outreach opportunities at the high-school level, continues
with undergraduate experiences and innovative bridge pathways from other majors, and culminates in professional Master’s degrees. Bridging these together is a Summer Fellowship program that will train 120 student participants at all levels. These pathways and the long-lasting relationships developed with local industry and community partners will continue to offer workforce development, educational advancement, and project-based learning opportunities not only for DS-PATH fellows but for all future aspiring Data Scientists in the region. Moreover, a workshop focused on Data Science pedagogy will
offer best and inclusive teaching strategies to Inland Empire teachers/faculty.